Effective Rigidity, Combinatorial Models, and Parameter Spaces for Low-Dimensional Hyperbolic Manifolds

The recent surge of results in the geometry and topology of
3-manifolds has provided many new tools for understanding
3-manifolds combinatorially and geometrically. In particular, the
question of how to gain an explicit understanding of the internal
geometry of a closed hyperbolic 3-manifold can be addressed with
new techniques developed by the P.I. together with Dick Canary and
Yair Minsky that apply to the infinite volume case. Such an
understanding would be a kind of effective version of Mostow rigidity,
wherein one not only knows the uniqueness of the hyperbolic structure
but additionally an explicit decription of its geometry. The P.I., in
joint work with Juan Souto, seeks to develop this kind of picture for
closed hyperbolic 3-manifolds admitting a Heegaard splitting,
given in terms of the Heegaard surface. Additionally, with Howard
Masur and Yair Minsky the P.I. will relate the internal geometry of
hyperbolic 3-manifolds homotopy equivalent to a surface to the
geometry of surfaces along a Weil-Petersson geodesic G in
Teichmueller space.

A recent trend in the study of geometry and topology is to develop
combinatorial models for geometric spaces. This kind of description
of a space or shape sacrifices a certain degree of precision in the
interest of capturing more of the large-scale structure, and often
general theorems guarantee that knowing this large-scale structure is
sufficient to completely determine the space. In a recent result of
the P.I. with R. Canary and Y. Minsky, such models were used to
classify all `constantly negatively curved,' or `hyperbolic'
3-dimensional spaces of infinite volume that are nevertheless tame
in a certain sense. This result solved a long-standing conjecture of
William thurston, where in a certain piece of data (akin to a kind of
DNA-sequence for the space) completely determines its structure. We
have developed a similar setup in the finite-volume case, and hope to
prove a similar classification theorem for such spaces. Information
of this large-scale type is more useful than existence results for
geometric structures, in that it gives one a more complete picture of
how such spaces behave. Such large-scale data arise and describe
phenomena in many contexts, whether it is the spaces themselves, or
their parameter spaces. The P.I., together with his collaborators,
will continue to develop a complete description of the large-scale
geometry of all hyperbolic 3-dimensional manifolds, as well as for
related spaces that parameterize them.